The Development and Application of Strategies for the Preparation of Designed Supramolecular Structures

This renewal award is made in the Office of Special Projects in support of the collaborative research of Professors Lauher and Fowler. The research deals with the design and synthesis of supramolecular structures using hydrogen-bonded or metal ligated networks to serve as templates for further assembly into layered or tubular structures or three-dimensional organic zeolites. Specifically, urea-based hosts will be reacted with di- or triacetylenes bearing complementary carboxylic acid groups to form binary hydrogen bonded networks in which the di- or triacetylenes will be polymerized. Related strategies with macrocyclic polyynes will lead to organic nanotubes. The general area of topochemical polymerization will be explored and extended to vinyl monomers such as substituted butadienes. With metal-ligated nanostructures, the novel two and three dimensional nanostructures will be screened for unique chemical, electronic or magnetic features. The development of new strategies for the synthesis of hydrogen-bonded and metal-ligated networks to produce supramolecular layered materials, nanotubes, and large channeled solids offers the promise of crystal enginering new solid materials with controllable lattice spacings. These materials are likely to find applications in size and shape selective catalysis, separations, and optical and electronic systems.